Enhancing collaborative learning among researchers, practitioners, and students at CSCL 2002

This request would support college students (graduate and undergraduate) to attend an international conference on "Computer Support for Collaborative Learning" (CSCL) of about 700 researchers and practitioners in Boulder Colorado in January 2002. The theme for the conference is: foundations of the research field in theory, technology, methodology, and community building.

The requested funds will support activities at conference such as creating a "community memory" which involves digital video, the Web, and DVD media to capture and disseminate ideas from the conference. It will also support activities that involve teachers directly in the conference process in order to provide the other participants with the perspective of practitioners. Also, it will support a doctoral consortium to introduce graduate students to the research community as they explain their dissertation work.